Attracting and Nurturing Women Faculty at a Hispanic-Serving Institution (HSI)

The University of Texas-Pan American is a Hispanic serving institution, committed to increasing the representation and success of women in STEM fields across faculty and leadership ranks, particularly for Latinas. This commitment is facilitated through the implementation of an integrated approach that is rooted in the American Psychological Association’s Psychologically Healthy Workplace Practices (HWP) and supported by an Office of the Vice Provost for Faculty Affairs, ongoing support for faculty, a self-assessment study, a sustainability plan, and the establishment of a broad coalition of faculty and administrators who ensure the successful implementation and institutionalization of the NSF ADVANCE project at UTPA. Specifically, this ADVANCE project addresses: faculty recruitment and advancement, policy and climate, education and empowerment and social science research that is intended to broaden and deepen the knowledge base related to issues that hinder the success of women, particularly Latinas, in STEM fields. As such, the UT Pan American ADVANCE program has the potential to seminally contribute to a deeper and more inclusive understanding of gender equity in the STEM disciplines, while systematically addressing the underrepresentation of Latina in the US STEM workforce.